Effect of the Chemical Structure on Polymer Miscibility

In this three-year U.S.-Yugoslav cooperative research project in polymer materials between Radivoje Vukovic of INA Research and Development in Zagreb and Frank Karasz of the University of Massachusetts, the investigators will continue to study the relationship between polymer miscibility (the capacity to blend and combine) and chemical structure. Polymers and new copolymers prepared by the Yugoslav group will be analyzed for structure and those properties which promote blending and compatibility. The goal of the project is to develop new and improved polymer blends. This is an excellent international match. The Yugoslav group, highly experienced in polymer synthesis, will prepare the new copolymers while the U.S. group will analyze its properties and characteristics. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.